Relativistic Astrophysics and Gravitation Physics

This award is to support the Yale Gravitational Physics Group under the direction of Professor V. Moncrief in their studies in theoretical general relativity and relativistic astrophysics. These studies are directed toward the application of rigorous mathematical techniques for the solution of physically significant astrophysical problems.